Promoting Science Literacy Through Neuroscience Laboratory Exercises

INTERDISCIPLINARY (99)

The project sustains and expands a fundamentals of neuroscience course for non-science students while simultaneously growing the previously successful outreach to underserved pre-college students. In addition, the project aids faculty to incorporate neuroscience as a means of promoting science literacy into their course offerings. The project develops a series of diverse laboratory experiences spanning increasing degrees of complexity, from dissection of sheep brain, to electroencephalograms, to real-time assessment of language comprehension. The laboratory exercises guide students toward reading and understanding primary literature, devising experiments, reflecting upon experimental results and presenting findings.